Disorder Effects and Critical Behavior in Statistical Mechanics and in Quantum Systems

This project will carry out basic research in mathematical physics on topics in the area of statistical mechanics and quantum mechanics with emphasis on the effects of quenched disorder and critical phenomena. The topics to be studied include: spectral properties of operators with extensive disorder with the aim of providing a non- perturbative derivation of localization in higher-than-one dimensional systems; properties of quantum spin systems using random-walk techniques from classical spin models in the path integral representation of the quantum propagators; proofs of universality in the critical behavior for a variety of models.